Workshop on Research Topics in Space Macrosystems: Autonomous Construction and Manufacturing for Space Electrical Power Systems to be held on April 5-7, 2000 in Washington, DC

0075691
Bekey

This workshop will attempt to identify fundamental and applied research issues associated with very large construction and manufacturing systems in space and/or on the moon. Such issues will arise in connection with the assembly of solar power satellite systems (which may require the use of hundreds of autonomous, free-flying robots) and with the manufacture of photo-voltaic systems on the moon. The proposed workshop will concentrate on the system issues, including control, intelligence, cooperation, and self-replication. Partial support for the workshop has been obtained from NASA Headquarters.
***